Collaborative Research: CRI: Planning Proposal: Community Resources to Support Research in Automated Authorship Attribution

Abstract

Collaborative Proposal

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: Collaborative Proposal: CRI: Planning Proposal: Community Resources to Support Research in Automated Authorship Attribution

Proposal: CNS 0454197
PI: Shlomo Argamon
Institution: Illinois Institute of Technology

Proposal CNS 1454126
PI: David Madigan
Institution: Rutgers University New Brunswick

Abstract:
The investigators will conduct a planning activity for a corpus supporting research on authorship attribution. Planning activities include surveying existing resources and determining what practitioners need; assessing the costs of obtaining, cleaning, annotating, distributing and maintaining a test corpus, conducting a workshop to assess the plans. The workshop builds on the activities of a Working Group that is already discussing research in this area. Applications of reliable and valid authorship attribution include literary scholarship, intelligence, criminal law, civil law, and computer security.